NSF/EPA TSE: Improving Resistance to Enzyme Alkylation During Enzyme-Catalyzed Production of Acrylamide

Production of acrylamide utilizing enzymatic hydration of
acrylonitrile offers a number of economic and environmental
advantages, and serves as a first example of a "green" process for
production of an extensively-utilized commodity chemical. The
enzyme-based process offers significant cost and environmental
advantages over the traditional chemical process, but is hindered
by temperature-dependent inactivation of the nitrile hydratase
catalyst by the acrylonitrile substrate. The hypothesis to be
tested in this project is that molecular characterization of the
nitrile hydratase inactivation by acrylonitrile with a new
thermophile isolate BR444 and subsequent enzyme alteration using
site-directed mutation will provide a more acrylonitrile-resistant
enzyme. The project is expected to provide basic information
regarding enzyme resistance to alkylation in addition to possible
improved catalysts for acrylamide bioproduction. This award is made
by NSF as part of the joint NSF/EPA Program on Technologies for a
Sustainable Environment.